ERI: Perceptual Quality Assessment of Volumetric Videos in Immersive Virtual Reality

Virtual reality (VR) is transforming how people work, learn, and connect, with applications spanning remote collaboration, healthcare, education, and entertainment. As these immersive experiences grow more sophisticated, ensuring that users perceive high-quality content becomes essential to their effectiveness and adoption. However, the tools currently used to measure the visual quality of content were designed for conventional two-dimensional video and fall short when applied to the complex, three-dimensional content that powers modern VR. This project addresses this gap by developing new methods for automatically evaluating the quality of volumetric videos, which aim to be realistic, three-dimensional representations of people, objects, and environments. The focus is on how such content is experienced when multiple users share and interact within the same virtual space simultaneously. Beyond its scientific contributions, the project strengthens research capacity at Texas State University, by creating lasting infrastructure for immersive media research. It actively recruits and mentors students, providing hands-on training in artificial intelligence and VR technologies. Students at both undergraduate and graduate levels participate directly in data collection, model development, and experimental research. Public engagement activities including K–12 school visits, laboratory tours, and interactive demonstrations connect the broader community to the societal relevance of these emerging technologies. All datasets, software, and trained models developed through this project are made freely available to the global research community, supporting transparency and future scientific progress.

This project develops a multimodal deep learning framework for point cloud quality assessment (PCQA), enabling automated evaluation of the visual quality of three-dimensional volumetric video content. The proposed PCQA method is tailored for realistic multi-object and multi-user virtual reality environments. The principal investigator and research team pursue three interconnected goals. First, the team designs a robust and efficient feature extraction architecture that jointly captures geometric (3D shape), textural (visual appearance), and temporal (motion) characteristics of dynamic point clouds, the primary representation of volumetric video. The architecture leverages visual transformers and multimodal fusion, incorporating temporal awareness and adaptive projection strategies to better identify perceptually relevant distortions. Second, the team constructs a first-of-its-kind multi-user volumetric video quality dataset comprising complex real-world scenes with multiple human figures, diverse objects, and rich backgrounds. The dataset is annotated with subjective quality data, including mean opinion scores, cognitive workload (NASA-TLX), and motion sickness ratings (SSQ), alongside objective measurements such as eye-tracking and field-of-view data collected using high-fidelity head-mounted displays. Third, the team develops the multimodal PCQA model by training on this dataset, integrating a visual saliency predictor to estimate attention-driven regions and a spatial-temporal fusion stage to capture geometric, textural, and motion-related distortions. The model accounts for factors unique to multi-user VR scenarios, including user movement, viewing direction, and field of view, which existing metrics fail to address. Performance is evaluated using standard correlation and error measures against human ratings, with ablation studies isolating component contributions. This work advances immersive multimedia, perceptual modeling, and learning-based quality assessment.